Postdoctoral Research Fellowships in Chemistry

Dr. Michael E. Kort has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Kort earned his Ph.D. degree at the University of Wisconsin under the supervision of Professor Steven Burke. Dr. Kort will continue research at the California Institute of Technology under the sponsorship of Professor Andrew Myers. Dr. Kort's postdoctoral training will provide him skills in advanced synthetic strategies, manipulation of DNA, and the application of high-field NMR to organic synthesis. Longer term, Dr. Kort plans to study the stereoselective synthesis of the enediyne class of anticancer antibiotics. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.